Polarization in Medium Energy Nuclear and Particle Physics

9411620 Perdrisat Research will be carried out using polarization degrees of freedom to study properties of the nucleon and few-nucleon systems. Focal plane polarimeters will be constructed for use at the MIT/Bates and CEBAF accelerators. The charge form factor of the proton will be measured using electron scattering polarization transfer to the recoil proton. Hadronic studies of few-body reactions, again using polarized beams, will be carried out at Saturne and Dubna aimed at studying the deuterium d-state wave function and other structure details. At CEBAF, nucleon and meson spectroscopy studies will be carried out, one element of which will focus on phi-meson electro-production to search for anomalous strangeness content in the nucleon. A search for predicted nucleon resonances, but heretofore not observed, will also be carried out at CEBAF. ***